Undergraduate Mathematics and Science Education: Southeastern Regional Conference on Curriculum Reform, February 2 - 3, l990

Undergraduate education in the sciences and mathematics faces a number of challenges. Three comments relate to this. First a climate which encourages scholarly and creative activities related to teaching often does not exist in major research institutions. University administrators can play a leading role in changing that climate. Second, easing the constrictions in the pipeline at the level of undergraduate science students is in the national interest. Third, it is also of highest importance to create in the nonscience major an awareness of the importance of science and technology in our individual and collective lives. This conference explores the opportunities for curricular reform in major research universities at the undergraduate level.